Collaborative Research: Diurnal to Seasonal Variability of Surface Ocean Currents form High Frequency Radar

OCE-9731304 Paduan The project will analyze high-frequency (HF) radar data and associated ocean surface phenomena. The objectives are to: 1) document the seasonal evolution of sub-tidal current; 2) relate observed wind to currents; 3) measure the vertical current shear and relate to wind; and 4) improve and characterize HF radar ocean current algorithms.